Presidential Young Investigator Awards

The research plan is to develop a conceptual model, or framework, of the information required to manage, plan, design, construct, and operate a building. This model has several development steps. 1. Separate the information into that required drive to process, and information required to describe the product (building). Separation will be based on the NSF funded Integrated Building Process Model (IBPM), current collaborative work with the NSF Engineering Research Centers at Carnegie Mellon and Lehigh, and industry input. 2. Define in detail the information required to control and drive the process. 3. Define the information that describes the building product and link the function, form, economy and time attributes of the building; at different levels of abstraction, (e.g., building, system, floor, room and component levels); from multiple perspectives, (e.g., structural, electrical); at the various stages in the life of the facility (as defined by the process model). 4. Develop a prototype data classification and coding system to allow users to interactively access information from multiple perspectives in different forms. 5. Select a building representing a typical environment for implementation of this research, e.g., a 200,000 square foot mixed use building, and collect the information specified by the framework or model. 6. Test the key attributes of the prototype on the selected building by allowing the users to pose typical scenarios and queries to the prototype. Analyse the information structure for absence and duplication of information. 7. Propose changes in information systems and processes to industrial participants.